A New Ultracentrifuge to Upgrade Undergraduate Studies in Cellular and Molecular Biology

To assist the Department of Biology to more fully develop laboratories in Cellular and Molecular Biology, NSF is providing funds for the addition of an ultracentrifuge with three rotors. A major trend in biology today is the understanding of biological phenomena in these two areas. This equipment enables students in the Cell Biology course to perform sophisticated experiments dealing with the isolation of cellular organelles and DNA. The addition of an ultracentrifuge to the equipment already available in the laboratories through the combined efforts of the State of Michigan and two major industrial firms in the community allows students in the Molecular Biology course to do all of the critical techniques involved in the area of genetic engineering.